Dissertation Research: Redundancy of Belowground Ecosystem Function among Native C4 Perennial Bunchgrass Species of Pinus Palustris Savannas.

00-73943
Donovan/West

DDIG: Redundancy of belowground ecosystem function among native C4 perennial bunchgrass species of Pinus palustris savannas

Plant species have been shown to dramatically affect belowground ecosystem functions such as nutrient pool sizes, nutrient cycling and water availability. Most of these studies have used exotic (non-native) species. The degree to which native species drive belowground ecological processes and the amount of redundancy within a given ecosystem is less well understood. In this project, the investigators will assess key parameters of the nitrogen cycle and water availability as well as plant traits above and below ground as they relate to belowground ecosystem functions. Specifically, the PIs will use field and glasshouse studies to examine the redundancy in belowground functioning of several bunchgrasses native to fire-driven southeastern savannas. The research is expected to provide valuable information for ongoing conservation and restoration of this and similar ecosystem types.